Computer Science Programs for the Nineties and Beyond

In this planning project Bowie State University will: 1) Restructure the computer science programs to provide smooth continuity from one degree to another. Since their Master's program was designed with the objective of retraining mainly professionals of non-computer science backgrounds, and the Bachelor's program lacks courses in the broad sub-disciplines of the computing field, they will restructure both programs so that (a) the undergraduate program will meet the curriculum guidelines of the Association for Computing Machinery (ACM), (b) any overlap in programs' course contents will be eliminated, and (c) their Master's program graduates can smoothly enroll into Doctorate's programs of partner universities and continue their computer science education when so desired. 2) Establish a facility for student and faculty research in computer science. 3) Work on establishing an independent Computer and Information Sciences Department. They will accomplish their objectives by: 1) Restructuring the undergraduate program to meet ACM's computer science curriculum recommendations that they offer new courses across the sub-disciplines of the field with emphasis on problem solving in order for their senior students to perform at a level that will meet national standard on the COSC Graduate Record Examination (GRE). 2) Setting up partnerships with at least two Doctorate program offering universities in order to provided the graduates of the Master's program with the opportunity to pursue further graduate studies leading to Ph.D degrees. 3) Increasing the number of faculty with terminal degrees and/or strong research and development experience in computer science areas. 4) Establishing a Center for Research in Distributed Computing (CeRDIC) for consolidating the department's future, private and government, sponsored research activities in distributed computing.